Mathematical Sciences: Finite Element Methods for Constrained and Ill-Posed Variational Problems

This project involves continued research on finite element methods for constrained and ill-posed variational problems. This includes research on a new mixed finite element method for the equations of anisotropic elasticity developed by the investigator and Professor Douglas Arnold of the University of Maryland. The focus is mainly on the computational effectivness of the method for pure traction and mixed boundary conditions. The investigator has developed some a priori error estimates for this difficult problem and now wants to check the effectiveness of the method on a computer for various choices of boundary conditions. The most likely procedure that will be followed is a simplified variational equation which reduces to a system of linear algebraic equations with a positive definite matrix. To solve the system efficiently, a preconditioned conjugate gradient method will be used. Another project to be pursued involves finite element methods for the first order scalar hyperbolic problem. The proposed research consists of continued investigations on the use of nonconforming finite elements of order higher than one (piecewise polynomials which are continuous at the midpoints of triangles) including the derivation of a priori error estimates and computational verification. The ideas of this research will also be applied to the problem of identifying unknown functional coefficients in a parabolic system of partial differential equations. The work on this problem is relevant to underground oil reservoir identification. This research falls into the general area of numerical analysis and computational mathematics. Its ultimate goal is to develop efficient computational methods to be used in scientific problems involving spatially distributed masses, energies, stresses and flows.